AMP: CSU Alliance for Minority Participation, Phase II

HRD-9802113 Ratcliffe The California State Alliance for Minority Participation (CSU AMP) proposes to continue its successful comprehensive, state-wide effort to increase significantly the number of minority students who receive a baccalaureate degree in science, mathematics, engineering and technology (SMET). By the end of the new grant period (2003-2004), the CSU AMP, through its enhanced efforts in Phase II, will again double the number of SMET degrees awarded to minority students, a figure that is quadruple the benchmark established in Phase I (750). In Phase I, we successfully focused on the critical transition points from high school-to-college and lower-division to upper-division status. In Phase II, we will enhance our program by increasing our attention on community colleges. Our specific objective is to dramatically improve SMET advising at the community college level by developing CSU/Community College advising teams and by developing and implementing strategies for institutionalizing the advising approaches developed by these teams. Twenty-four community colleges-with a total enrollment of more than 400,000 students-have been identified as active participants in this activity. In addition, we will create a large number of paid academic year research opportunities to provide junior- and senior-year students on-campus experiences that are directly related to their SMET goals. An important goal of Phase II is state-wide institutional reform. The CSU will join with the University of California AMP program (CAMP), to take a leadership role in developing intersegmental committees composed of faculty and administrators from the University of California, California State University, and California Community College systems. Examples of issues that these committees will address are: SMET advising, electronic transcript transfer from community colleges to CSUs and UCs, and mechanisms for sharing effective teaching strategies. The CSU AMP statewide Governi ng Board is composed of key leaders in K-12 education, higher education, and the private sector. It is chaired by the Chancellor of the CSU and oversees general projects operation and provides direction and assistance in broadening support for the Alliance among academic, industrial, and governmental sectors. The Chancellor of the CSU committed $800,000 per year in support of student stipends associated with the summerbridge, academic year workshop, and research opportunity components of Phase II. This commitment combined with the commitment of the 22 participating CSU and 25 Community College of $2 million/year, represents a 3-to-1 match of our requested support from the NSF.